A network-centric input-output and robustness analysis framework for distributed dynamic systems

Research Plan: A networked dynamic system is a collection of dynamical units that interact via an information
exchange network during their operation. These systems have found many applications in diverse
areas such as multiple space, air, and land vehicles, energy systems, physiology, and medicine. Currently,
there is an active research effort underway in the control and systems community to formalize these systems
and lay out a foundation for their analysis and synthesis. The objective of this project is to carry out foundational
studies on a network-centric input-output and robustness analysis framework for distributed dynamic
systems. The approach adopted for this purpose is based on algebraic graph theory on one hand, and random
and random geometric graphs, on the other. In this direction, we will address problems associated
with probabilistic moments of system-theoretic objective functionals over uncertain networks, as well as
the important phenomena associated with time-scales and phase transitions in robustness and performance
measures of the corresponding networked systems. An existing computational testbed at the University of
Washington will be augmented for the purpose of validation and evaluation of the proposed methodologies.
Education Plan: Distributed dynamic systems provide an ideal venue to engage control and systems graduate
students in the elegance and power of system ideas, not only as they pertain to engineering problems,
but also in their relation to biology and information sciences. The education program of this project is
implemented through a graduate course offering and curriculum development, graduate mentoring, and promoting
research collaboration venues via in-class seminars and a workshop. The proposed course, Networkcentric
Dynamic System Theory and Applications, will be developed and offered as a two quarters graduate
level course in the controls curriculum of the University of Washington. The course will cover aspects of
combinatorial theory that, in conjunction with system theory, have proved instrumental in the analysis of
network-enabled dynamic systems. The second quarter of the course provides a rigorous bridge between
system theory and networked dynamic systems as encountered in a wide array of disciplines such as in biology
and physiology. The workshop on network-centric dynamic systems during the final year of the project
will not only serve as an exceptional educational outlet for the graduate students, but also as a vehicle to
further enhance opportunities for interdisciplinary research.
Intellectual Merit: The intellectual merit of the proposed research and education program consists of:
(1) foundational contributions to a new sub-discipline in control theory referred to as network-centric dynamic
system theory (2) applying novel graph and system theoretic techniques for the analysis of networked
dynamic systems as encountered in life and physical sciences and engineering systems (3) providing a significant
impetus for collaborations between system and control theorists, combinatorialists, biologists, and
physicists, at the University of Washington, and (4) development of a new curriculum for graduate program
in systems and control education.
Broader Impact: Our project will lay a fertile ground work for future collaborations between system and
control researchers, graph theorists, and the biological science community. By doing so, it will also bring
into the horizon a host of new career options for system and control graduate students. Our contributions to
the emerging field of networks will be well publicized via: (1) a well-organized workshop on the third year
of the project, bringing researchers from across disciplines, from local computer science, engineering, and
biomedical industries (2) presenting research results, often by graduate students, in professional conferences
and research institutions, and (3) frequent seminars in the educational institutions that are non-Ph.D granting
and/or serve underrepresented groups. These more public seminars will highlight the common complexities
of networked dynamic systems across various disciplines, and how control and system theory is providing
novel theoretical and algorithmic tools for their analysis and synthesis. These seminars will also be actively
used as a recruitment tool, particularly for attracting potential graduate students from underrepresented
groups in engineering.